Maine Forest Landowner Study

One of the most important questions for resource management is, under what
conditions will users conserve the resources on which their livelihood
depends? This project studies the forest management
strategies of different types of forest landowner groups in Maine. Some
owners are doing a far better job of managing their forests sustainably
than are others. The quality of management practices is a crucial issues at this time,
because the rapid depletion of forests is a world-wide problem. Maine is a
particularly good laboratory to study forest management issues because it
is the most heavily forested state in the country, and a wide variety of
management practices are being used. In Maine, the rate of cutting is not
sustainable, according to a number of studies. As a result, the amount of
land covered with brush and scrub trees has increased greatly, and the
amount of acreage in high quality forests has declined greatly. At the same
time, Maine's entire forest industry, one of the state's largest
industries, is undergoing great changes. Paper mills are being closed,
employment is declining sharply, and large tracts of land are changing hands.

This project involves an anthropologist and a forester studying Maine's
paper companies, timber companies, forest contractors and small private
forest owners. Two different, but complementary, kinds of studies will be
done. First, information will be gathered on the forest management
practices of a sample of landowners in each of the landowner categories,
with emphasis on the paper companies and the private landowners. This
information will be gathered using a number of techniques: mail surveys,
qualitative in-person interviews, archival research, and direct
observations. This study is designed to understand the forest management
strategies of these landowners, and the social, cultural, economic and
political factors motivating these decisions. Second, the actual state of
the forests of these landowners will be evaluated using both field visits
and the analysis of satellite images. Information from these studies will
be used to test a number of hypotheses which will give us a greater
understanding of the behavior of private forest-owners.

Broader implications: This study will enhance our understanding of the
factors motivating people in various landowner categories to conserve or
over-exploit their forests. Legislators, management
agencies, and local communities would be able to act on this information to
frame better resource management policies.